Fretting Wear

Fretting is classified as the type of wear which occurs as a result of low amplitude vibrations found in mechanical joints, supports, flanges, wires, steel ropes, flexible cables, and the like. The problem associated with fretting wear is generation of surface cracks at contacts by fretting and eventual fatigue fracture of the structure by propagation of such cracks. This research is directedf toward a fundamental study of fretting wear and the effect of controlling variables such as the contact stress, displacement amplitude, frequency, and materials parameters. The munerical result of this investigation will be presented in "Fretting Maps", to provide design guidelines for other tribologists and designers.